NUE: Nanoscience and Nanotechonology Undergraduate Education at the University of Michigan-Dearborn

This Nanotechnology Undergraduate Education (NUE) program entitled, "Nanoscience and Nanotechnology Undergraduate Education at the University of Michigan-Dearborn," under the direction of Dr. Pravansu S. Mohanty is being funded by the Directorate for Engineering (ENG), Division of Engineering Education and Centers (EEC). The project's objectives are: 1) to develop an introductory nanoscience and nanotechnology course which will be taught more from the perspectives of concept development and qualitiative analysis rather than mathematical derivations; 2) to develop nanoscience and nanotechnology modules and integrate them to existing courses; 3) to create undergraduate research opportunities on nanotechnology; and 4) to partner with the Dearborn Center for Math, Science, and Technology and the Academy of Engineering and Technology (DCMST-AET) Magnet School to integrate nanoscience and technology concepts into their curriculum.